Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Scientific Computation Group (Scicomp) in the Mathematics
Department at UCSD will purchase a 16-processor MPI-based parallel
computer and four Linux-based graphics workstations for visualization.
The equipment will be dedicated to the support of research in the
mathematical sciences. The equipment will be used for several research
projects, including parallel adaptive multilevel finite element methods,
parallel algorithms for optimal control with PDE constraints, parallel
level set algorithm development, and applications in biochemistry and
physics.

Supported by this computing equipment, our research program will
provide graduate students and postdocs a broad educational experience
in an environment in which different aspects of scientific computation
are integrated. This produces scientists who are not only expert in
their own area of study, but are also able to communicate across
disciplinary boundaries.

As part of this proposal, SDSC (San Diego Supercomputer Center)
will provide fiber-optic infrastructure to connect the 16-processor
parallel computer to a similar large cluster located at SDSC. The
coupled clusters will be used in large production calculations
requiring substantial resources, and the individual Scicomp cluster
will be used for parallel algorithm development and for smaller
production calculations. The Scicomp satellite with fiber link to
SDSC will complement similar computational satellites recently
constructed by the biochemistry group on campus and by the UCSD
Medical School.